Postdoctoral Fellowship: EAR-PF: Influence of Glacial Outburst Floods on Estuarine Morphodynamics and Water Transport

High-magnitude glacial lake outburst floods (GLOFs) occur when meltwater trapped behind an ice dam suddenly releases, sending a fast, sediment-laden surge through downstream rivers and into coastal waters. As glaciers retreat worldwide, these floods are becoming more frequent and powerful, increasingly threatening downstream communities and infrastructure. Using the Mendenhall-Juneau system as a natural laboratory, this postdoctoral fellowship project seeks to understand coastal system response to repeated flood hazards. This project will investigate how single and repeated GLOFs, and the levees built to contain them, reshape the downstream estuary and its functions. The project will support the national interest by providing place-based Earth science education for middle school students in flood-vulnerable communities as well as training prospective water resource researchers through the development of an open-source Coding the Water Cycle curriculum.

Although individual glacial lake outburst floods (GLOFs) are well documented, most modeling efforts have focused on flood initiation and routing within river channels. This leaves a key gap in understanding the influence of GLOFs on downstream coastal environments. Consequently, the cumulative effects of repeated, sediment-laden GLOFs on estuarine morphology and water transport remain largely unknown. This postdoctoral fellowship seeks to understand whether repeated GLOF-driven sediment pulses allow estuaries to recover between events, or if they trigger nonlinear responses that push the system toward long-term reorganization. The fellow will explore how levee confinement alters flood and sediment pathways. Single and repeated GLOFs will be simulated with an integrated hydro-morphodynamic modeling framework calibrated with field and satellite-derived suspended-sediment data. The modeling results will be used to quantify event-scale change, identify thresholds between recovery and reorganization, and evaluate how levee confinement alters flood propagation, sediment routing, and downstream geomorphic adjustment. Water transport will be characterized using exposure time and compared across pre- and post-flood bathymetry to isolate how morphologic change alters estuarine circulation and exchange. By treating extreme floods as geomorphic drivers, this research will improve predictions of estuarine conveyance and exchange in glacier-influenced regions, increasing our understanding coastal system response to increasing flood events.